Muon Spin Rotation Measurements of Off Axis Internal Magnetic Fields in Anisotropic Superconductors

9321363 Kossler Technical abstract: Static and dynamic fields in high temperature superconductors (HTS) will be studied both theoretically and experimentally by new extension of muon spin rotation (muonSR) techniques. Nearly all muonSR work in HTS to date has focused on transverse magnetic field measurements. The new development in this work will allow use of the longitudinal field technique even though the average internal field is neither along nor perpendicular to the beam axis. This technique will be used to detect small internal fields, which are perpendicular to the average magnetic field. Experiments will be compared to the theoretically determined tilt disorder induced by the transverse field distributions. Data on internal field correlation times will be used to develop models for this motion which will aid to understand the disordered vortex lattice melting process. Non-technical abstract: Magnetic fields enter high temperature superconductors along axes of vortices. Ideally these vortices are straight and arranged in regular patterns. However, in reality these vortices tilt, flex, and move out of regular positions. The static and dynamic disorder of these vortices needs to be understood because they contribute to energy losses in these superconductors. Such losses in turn have detrimental effects on potential superconducting devices such as high field magnets or electrical transmission lines. The nature of the vortex order, tilt, and motion will be studied both theoretically and experimentally. The experimental technique uses the elementary particle called a muon to sense the local magnetic environment in the superconductor. ***